Mechanisms of Rho-Dependent Transcription Termination

9408231 Abstract Termination factor Rho catalyzes the release of transcripts from elongating RNA polymerase at specific sites in bacterial genomes. At least two signals appear to be required for Rho-mediated transcription termination: (1) a site on the nascent transcript that binds Rho to the ternary transcription complex and activates the Rho AtPase, and (2) a release signal, most likely located within the RNA, that pauses the transcription complex and kinetically couples Rho binding to transcript dissociation. We will apply a novel approach developed in our laboratory to facilitate the study of Rho-dependent termination by uncoupling the Rho attachment/transcript release reactions from transcription elongation. A set of transcription termination intermediates has been constructed where RNA polymerase is physically blocked from further elongation by a cleavage-defective EcoR1 endonuclease mutant, EcoR1(Q111). Rho-mediated release of transcripts from these blocked ternary transcription complexes (BTC's) occurs quite readily if the blockade occurs downstream of the natural termination signal contained in the transcript. By engineering the blockades at different strategic locations along the Rho-dependent terminator region, we can progressively uncover separate elements of the signal that are required for Rho function. Using the BTC methodology, we have dissected the transcription termination signal in the rho attenuator. This terminator located in a 255 nt region between the promoter and the Rho protein coding sequence, and autogenously controls the level of Rho mRNA synthesis. We propose to continue our mutagenesis and binding site mapping analysis of specific sequences in the attenuator that we previously showed to be essential for Rho-dependent release. We will also test a simple two-step kinetic formalism to analyze the binding and release reaction, and to determine the effects of the auxiliary termination factors NusA and NusG proteins. Several mode ls for termination reaction will be tested using fluorescence spectroscopy and electron microscopy to detect intermediates between the attachment and release step. The details of how the Rho RNA-DNA helicase couples ATP hydrolysis to mechano-chemical work will be explored using novel flow cytometry, electron microscopy and RNase H assays. %%% Often the expression of genes encoding information for the synthesis of specific proteins must be controlled very tightly; too much or too little of the gene product can have profound adverse effects on cellular metabolism and development. A common mechanism for fine control of gene expression in bacteria, plants and animals is transcription attenuation. Attenuators are signals located in front of genes that can conditionally stop the movement of RNA polymerase during transcription (RNA biosynthesis). Our laboratory is interested in a protein factor called Rho, that catalyzes this attenuation reaction in bacteria. Rho causes transcription termination by binding to the RNA transcript and using the energy stored in ATP to physically dissociate the transcript from RNA polymerase. Many of the details of this reaction are unknown. Using a combination of recombinant DNA technology, biochemical methods and high resolution electron microscopy we will determine where and how Rho binds to the RNA transcript. A reason for the ATP energy requirement may be to fuel the movement of Rho along the RNA transcript and to permit Rho to physically "push" the RNA off the RNA polymerase and DNA. To test this hypothesis, we will construct transcription complexes containing strategically placed fluorescent tags on the RNA. Using fluorescence spectroscopy and flow cytometry, we will monitor how fast Rho releases the RNA, and determine if the fluorescent signals change intensity and orientation during the reaction. Such changes may provide insight into the intermediate steps that occur between Rho attachment and RNA release, including possib le movement of Rho on the RNA. ***